Workshop on Voronoi Diagrams, Splines and Applications to be held February 19-21, 1997 at Arizona State University Tempe, Arizona

This grant supports a workshop on the applications of Voronoi diagrams and splines. Voronoi diagrams are one of the central concepts in computational geometry, and have found applications in a broad range of scientific applications. This workshop brings together leading researchers on Voronoi diagrams from various areas of expertise. NSF funds are being used primarily to support participation by young researchers.